Theoretical Medium Energy Nuclear Physics

Various few body reactions in intermediate energy nuclear physics will be studied. These include, nuleon-nucleon interaction above the meson production threshold, the weak interactions between nucleons, and nucleon-antinucleon annihilation.